Support for the Third Joint Meeting of the US Sections of the Combustion Institute

Broader Impacts

Partial support is provided for the Third Joint Meeting of the U.S. Sections of the Combustion Institute to be held in Chicago, IL on March 16-19, 2003. Funds will subsidize the attendance of graduate students and young researchers, provide for distribution of the proceedings on compact disc, and for rental of audio-visual equipment.